Hamiltonian and Celestial Mechanics

PI: Richard Moeckel, University of Minnesota - Twin Cities
DMS-0200992

Project Abstract:
Hamiltonian and Celestial Mechanics

This project is devoted to research in the general area of dynamical
systems theory with emphasis on Hamiltonian and celestial mechanics. Several very
different aspects of the subject will be studied. Part of the project deals with the special
periodic solutions of the n-body problem arising from central configurations. It is a
long-standing open problem to determine how many central configurations are possible, or
even if the number is finite. Techniques from algebraic geometry and computational algebra
will be used to attack this question. A second part of the project involves the
construction of isolating blocks in the phase space of the three-body problem. It is known that
it is possible to find simple, explicit isolating blocks at the collinear Lagrange points
of the restricted three-body problem. These blocks can be used to study the complicated
invariant set nearby. The project is to carry out such a construction near the
collinear central configuration of the unrestricted three-body problem. Here the
dimension of the phase space is higher and the geometry is much more complicated. A final part
of the project is concerned with understanding the mechanism of Arnold diffusion for
Hamiltonian systems. The approach taken here is based on the construction of an invariant
Cantor set of annuli and subsequent analysis of the resulting dynamics.

The gravitational n-body problem remains an active topic for mathematics
research three centuries after Newton proposed it. Over the years it has been a
stimulus for the development of new mathematics of wide applicability. It is the classic
example of a nonlinear mechanical system and its solutions include orderly cyclical
motions, multi-body collisions, and irregular, chaotic behavior. The simplest
solutions are the rigidly rotating orbits arising from the central configurations.
Central configurations are special arrangements of the masses such that the gravitational
forces can be exactly balanced by centrifugal forces when the configuration rotates. Although
these solutions are dynamically very simple, the problem of finding or even counting the
central configurations turns out to be very difficult when there are four or more masses
involved. Part of this project is about how to deal with very complicated algebraic problems
such as this, perhaps using the help of computers. The central configurations are
important landmarks which provide a starting point for further analysis. It turns out that
there are many other interesting solutions near the simple, rigidly rotating ones. One
way to trap and study these nearby orbits involves the construction of so-called
isolating blocks. The geometry of these blocks provides qualitative information about the
solutions inside and can also form the basis of numerical methods for approximating these
solutions. Finally, there is the problem of understanding chaotic dynamics in
mechanical systems and how such behavior can lead to large-scale instability. Instability in
celestial mechanics can give rise to such phenomena as the slow drifting of the orbital
parameters of planets or asteroids. It also occurs in a variety of other mechanical systems.
This phenomenon of Arnold diffusion is only partially understood at present. The new
approach which will be pursued here seems promising but much work remains to be done before
it can be applied to complex systems like the n-body problem.